Traveling Interactive Microbiology Exhibition

The New York Hall of Science requests $829,312 over four years to develop and circulate a traveling version of "Hidden Kindoms - The World of York Hall of Science in April, 1991. The traveling version will consist of: an introductory panel; 16 Easy-View microscopes exhibiting living microbes; units dealing with size, scale and magnification; two interactive computer programs entitled "Understanding AIDS" and "How Your Body Fights Disease"; a video microscope for the Microscopic Life demonstration; units on virusesand bacteria; a mosaic of color transparencies of different microorganisms; one Optech (BYOB) interactive video microscope; three zoetropes illustrating mcrobial movement; and a mini-laboratory room containing all the equipment and materials necessary for maintaining the exhibit and presenting the MICROLAB workshops to students and teachers. The 1,500 square foot exhibit will travel to nine sites over three years. The new York Hall of Science will provide on-site training in estasblishing and maintaining the exhibit, a weekly shipment of microrganisms and supporting materials, an exhibit catalog, an 11-minute video featuring living microbes, pre- and post- visit materisla for schools with suggested activities , and programs for student and teacher workshops. A novel feature of this traveling exhibition will be the opportunity for the host museum to retain, on a cost-share basis, the mini- laboratory with its equipment and four Easy-View microscopes which can become the core of a microbiology program. Biology, Microbiology; Informal Science Education; Elementary, Middle and High School